Multi-Particle Wavefunction of Collective Parameters

9510316 Fano The spatia character of the wavefunctions of simple three- body systems such as He and H2 are studied using the R-matrix, hyperspherical expansion technique. This enables a systematic study of how these systems evolve from small to large hyperadii and the mechanism responsible for ionization and dissociation of the molecular complex. ***